Inner Models, Fine Structure and Large Cardinals

Abstract

Award: DMS-0204728
Principal Investigator: Martin Zeman

The proposed research focuses on various aspects of the inner
model theory and can be divided into two areas. The first area
puts emphasis on the determining the internal structure of
extender models, fine structure theory and infinitary
combinatorics. The PI has done extensive research here, making
substantial contributions to the existing results. Extender
models are generalizations of Goedel's constructible universe
which admit a very complex structure of large cardinal
axioms. The key element behind the inner model theory is
iterability -- a method which enables us to iterate countable
structures that are elementarily embeddable into initial segments
of these models. Granting iterability, the author and his
collaborators were able to develop a fine structure theory of
these models, which is a means enabling to investigate the
internal structure and combinatorics (Jensen's principles) of
these models abstractly, without any direct reference to
iterability. The aim of this project is to extend the existing
methods in a manner that would yield the complete description of
combinatorial properties of extender models. The open problems
are related mainly to cardinal transfer theorems and stationary
reflection. This part of the project includes also direct
applications of the inner model theory in determining the
consistency strength of various principles from infinitary
combinatorics. The focus here is on improving the PI's results on
Jensen's guessing principle. The second part of the project
consists of two areas that are less tightly related to the PI's
past research, namely the construction of inner models,
iterability and applications in the descriptive set theory.

The subject of set theory is the analysis of methods which arise
in mathematics. The methods that are widely accepted by the
mathematical world have been formalized into so-called
Zermelo-Fraenkel system of axioms (briefly ZFC). However, it
turns out that we more and more often encouter questions whose
solutions require more than mere ZFC. Set theory provides us with
tools for recognizing such problems and approaches which enable
us to determine which methods to use. More precisely, set theory
provides us with a general method for determining the complexity
of various problems quantitatively. The scale used here is the
hierarchy of the large cardinal axioms. Extender models play a
crucial role here -- there are the actual technical means which
enables us to establish the connection between various concrete
problems from mathematics and large cardinal axioms.

The proposed research focuses on various aspects of the inner
model theory and can be divided into two areas. The first area
puts emphasis on the determining the internal structure of
extender models, fine structure theory and infinitary
combinatorics. The PI has done extensive research here, making
substantial contributions to the existing results. Extender
models are generalizations of Goedel's constructible universe
which admit a very complex structure of large cardinal
axioms. The key element behind the inner model theory is
iterability -- a method which enables us to iterate countable
structures that are elementarily embeddable into initial segments
of these models. Granting iterability, the author and his
collaborators were able to develop a fine structure theory of
these models, which is a means enabling to investigate the
internal structure and combinatorics (Jensen's principles) of
these models abstractly, without any direct reference to
iterability. The aim of this project is to extend the existing
methods in a manner that would yield the complete description of
combinatorial properties of extender models. The open problems
are related mainly to cardinal transfer theorems and stationary
reflection. This part of the project includes also direct
applications of the inner model theory in determining the
consistency strength of various principles from infinitary
combinatorics. The focus here is on improving the PI's results on
Jensen's guessing principle. The second part of the project
consists of two areas that are less tightly related to the PI's
past research, namely the construction of inner models,
iterability and applications in the descriptive set theory.

The subject of set theory is the analysis of methods which arise
in mathematics. The methods that are widely accepted by the
mathematical world have been formalized into so-called
Zermelo-Fraenkel system of axioms (briefly ZFC). However, it
turns out that we more and more often encouter questions whose
solutions require more than mere ZFC. Set theory provides us with
tools for recognizing such problems and approaches which enable
us to determine which methods to use. More precisely, set theory
provides us with a general method for determining the complexity
of various problems quantitatively. The scale used here is the
hierarchy of the large cardinal axioms. Extender models play a
crucial role here -- there are the actual technical means which
enables us to establish the connection between various concrete
problems from mathematics and large cardinal axioms.